Constellation Observing System for Meteorology, Ionosphere and Climate (COSMIC)

This CSA will continue support ongoing operations of the Data Analysis and Archive Center (DAAC) for the Constellation Observing System for Meteorology Ionosphere and Climate (COSMIC). DAAC will provide remotely sensed data for research in meteorology, climate, ionospheric physics and Earth's gravity field as specified in the proposal entitled "Establishing and Operating the COSMIC Data Analysis and Archive Center (CDAAC)."